Ground-Based Radar for Detection of Earth-Directed Coronal Mass

The investigators will determine the properties of an Earth-based radar capable of detecting fast Earth-directed solar coronal mass ejections (CMEs). The objective is to assess the feasibility of detecting such events by means of ground-based solar coronal radars and to identify the scientific potential of such observations for enhancing the understanding of the early development of coronal mass ejections. A detailed description of the properties of an Earth-based radar capable of detecting fast Earth-directed CMEs will be developed, including those characteristics that would facilitate continuous monitoring for such events. Radar parameters that best separate the CME radar signature from the background coronal echo will be determined by comparing the expected signature with past observations of coronal echoes. Major Earth-directed CMEs have been identified as harbingers of severe space weather at Earth. As the consequent solar wind disturbance takes a day or more to reach Earth, early detection of such events would provide a means to prepare for the possible impacts on technical systems.